A Survey of the Freshwater Fishes of Madagascar

The project will (1) determine fish diversity and distribution in the remnant rainforest and coastal plains of Madagascar; (2) assess, for conversion and sustainable use purposes, the status of scientifically and commercially important native fish species; (3) study fish ecology and physical and chemical habitat characteristics of the Madagascar rivers: (4) produce a checklist and database of the fishes of Madagascar for in-country conservation planning; (5) provide research and teaching collections (preserved specimens frozen and alcohol tissues) to Madagascar and US institutions for future biodiversity, molecular systematic, and ecological studies, and for in-country and US training of students. Madagascar fish are highly endemic, paralleling the endemism of the rest of of that African island fauna. Many of the fish lineages are ancient, with their own origin dating to the geologic rifting of Madagascar from the African mainland about 80 million years ago. The fish fauna; however, is poorly known and studied, and its diversity is severely threatened by deforestation and the introduction of foreign species. Many of the surveyed and sampled fish will be new to science. This project has US partners (World Wide Fund for Nature, World Wildlife Fund, Conservation International) and extensive Madagascar collaboration (scientists and students at the University Antananarivo; Parc Botanique et Zoologique de Tsimbazaza, Perinet Faunal Reserve, Ranomafauna National Park). This biodiversity study is extremely urgent and has the full permitting and logistical support od Madagascar officials. %%% By virtue of its more than 80 million years of isolation, Madagascar has developed among the most unique plants and animals on earth. This project will survey the freshwater fish of the rainforest and coastal plain rivers of Madagascar, many of which are highly endemic and threatened by habitat extinction. Many of these fish lineages are ancient, with the origin dating to the geologic rifting of Madagascar from the African mainland about 80 million years ago. The project will also assess, for conservation and sustainable use purposes, the status of scientifically and commercially important native fish species. The Madagascar fauna and flora is disappearing at a desperate pace -- for example, only 10 to 15% of the original rainforests are left. This support will enable the goals of sustainable development and conservation of biodiversity, building up Madagascar's scientific capacity in biodiversity research and strengthening long-term collaborative research linkages between US and Malagasy scientists.